CAREER: Optoelectronic Multicomputer Communication Systems Modeling and K-12 Teacher Training and Enhancement: A Career Development Plan

9703006 Cruz-Rivera The objective of the career development plan is to facilitate the early development of the P.I. as both researcher and educator. The proposed research activities seek to advance the development of an Applications-Driven Optical Interconnect Technology (ADROIT) modeling framework. The ADROIT framework seeks to capture the performance interplay among all major components of a system's design space for a wide variety of wire-based and optical interconnect technologies for multicomputer communication networks. The proposed educational activities, in turn, seek to enable the establishment of a Center for Educational Excellence in Math, Science, and Engineering (CEMCI) that will focus on K-12 teacher training and enhancement. In particular CEMCI will focus on the incorporation of technology tools into the K-12 math an science curriculums of Puerto Rican schools *** ------------------------------------------------------------------------ Jose L. Cruz Rivera Catedratico Auxiliar Departamento de Ingenieria Electrica y Computadoras Universidad de Puerto Rico-Mayaguez Tel. (787) 832-4040 ext. 3097 Fax: (787) 831-7564 [email] http://exodo.upr.clu.edu/-jcruz ...... Printed for [email] (Deborah Crawford)